PPE (Preschoolers, Parents, and Educators: Strategies to Support Early Science Literacy)

The Boston Children's Museum will collaborate with Action for Boston Community Head Start Programs and Evergreene Research and Evaluation on an integrated research-to-practice project whose focus is science learning by pre-school age children. It will produce the following deliverables: a research-based Adult-Child Interaction Inventory (ACII) cataloging a spectrum of nonverbal and verbal interactions that occur during science engagement between parents, grandparents, or caregivers and young children; an ACII User Guide for museum professionals detailing how the inventory can be used for exhibit and professional development; a 2,800 sq ft Peep's World permanent exhibition informed by the ACII research; and a best practices survey highlighting effective strategies for eliciting positive adult-child interactions derived from a Community of Practice established by this project.

The project will apply the research findings on nonverbal adult-child behavior to designing exhibits eliciting interactions supporting early childhood STEM learning. Project outcomes will benefit museum exhibit and program developers, preshool educators and families with children ages 3 to 5.